Chapman Conference on Global Biomass Burning

This award provides partial support for a Chapman Conference on Global Biomass Burning: Atmospheric, Climate, and Biospheric Implications. Chapman Conferences are topical meetings sponsored by the American Geophysical Union. This conference is designed to create opportunities for discussion not normally available through the format of larger meetings. The Conference will bring together a group of recognized experts for a discussion of the multi disciplinary scientific aspects of biomass burning. Regional and global effects of biomass burning will be explored by specialists in the relevant biological, atmospheric and earth sciences and in fire management. A conference- proceedings volume will record the information and viewpoints presented by participants for use by the scientific and public-interest communities. Research in this area of growing world-wide interest is expected to accelerate in the near future. To help facilitate the growth of the needed research effort this grant supports the attendance and participation of graduate students having relevant interest in this field of research by providing for travel and subsistence costs. The Conference will be held at Williamsburg, Virginia, March 19-23, 1990.